CRI: Acquisition of an Infiniband Cluster with SMP Nodes

Abstract

Program: NSF 04-588 CISE Computing Research Infrastructure
Proposal: CNS 0551555
PI: Yuan, Xin
Institution: Florida State University
Title: CRI: Acquisition of an Infiniband Cluster with SMP Nodes

Florida State University investigators will acquire an Infiniband cluster computer with dual processor, 64-bit SMP nodes. The cluster, which can be configured to resemble various cluster architectures, will give researchers access to state-of-the-art processor, network, and cluster technologies. By providing contemporary platforms for software development, testing, and performance evaluation, the acquisition can substantially improve the output of the participating research groups, increase the visibility of their research, encourage industry participation in research, and enhance education. The projects that will benefit from the acquisition span a range of areas in distributed systems including operating systems, runtime systems and compilers, and applications. The projects are (1) optimizing MPI programs through compiled communication, (2) delayed finalization of MPI collective communication routines, (3) distributed cluster resource virtualization, (4) performance and scalability of web services, (5) an integrated approach for communication optimization in the cluster of workstations environment, and (6) exploring high performance distributed systems (educational project).